Conference: Texas Power and Energy Conference (TPEC) 2027

The Texas Power and Energy Conference (TPEC) is a student-run IEEE technical conference that started in 2017. TPEC 2027 will be held over two days in February 2027 on the campus of Texas A&M University in College Station, Texas. This event will bring together participants from industry and academia to present and discuss the latest technological developments and current challenges in electric power and energy engineering. The topics highlighted at TPEC 2027 will include power systems, power electronics, electric machines, grid resilience, energy markets, and cyber-physical security. The conference will also feature keynote speaker discussing cutting-edge work in industry. The conference will include paper sessions, keynote speakers, a student poster competition, technical tours, and a mini-job fair. Graduate and undergraduate students will participate in the conference.

This grant will be used to support student travel to and attendance at TPEC 2027. Graduate and undergraduate students will benefit from being exposed to new research developments, hearing keynote speakers, networking with representatives of industry and academia, and having the opportunity to present their own work in a paper or poster. The research community in electric power and energy engineering will benefit as well, from the value and perspectives the students will bring to the event.